Transition Metal Templated Chemical Synthesis

This research will focus on the further development of organo- group IV metal (Zr and Ti) mediated cyclization and cycloaddition reactions which have been discovered in the PI's laboratory. Application of this new methodology will be showcased by the synthesis of selected natural products including securinega alkaloids via zirconocene promoted heteroannulations, the lycora ring system via a zirconocene promoted reductive cyclization, 9(0)-methanoprostacyclin and methano PGI-1 via a zirconium complex and related cyclizations, and pyrrolidine and piperidine alkaloids via the intramolecular imidotitanium ı2+2! cycloaddition reaction. These target molecules have been deliberately selected so that the crucial issues of stereo-, regio-, and chemocontrol associated with group IV mediated coupling processes can be thoroughly evaluated. In this way, the utility of these new reactions for performing operationally practical chemical syntheses will be demonstated. %%% With this award the Synthetic Organic Program of the Chemistry Division will support the research of Dr. Tom Livinghouse of the Department of Chemistry at Montana State University. The research is in the general area of synthetic methodology and its application to natural products synthesis. The focus will be on the use of organometallic systems containing titanium or zirconium as templates for the actualization of chemical reactions which would be otherwise impossible. These new reactions will be used to synthesize a number of natural products whose structures have been deliberately selected so that the crucial issues of stereo-, regio-, and chemocontrol associated with these organometallic mediated processes can be thoroughly evaluated. In this way, the utility of these new reactions for performing operationally practical chemical syntheses will be demonstrated.